Neutrino Astronomy with the High Energy Neutrino Facility at the South Pole

This is a proposal to analyze the AMANDA II data to search for neutrinos from Gamma Ray Bursters and for high energy neutrinos. This group will also perform the necessary simulation and calibration work required by this search. Some of the work will need to be done at the South Pole.